Flow Channeling In Soft Clays

The objective of this proposal is to study the development of concentrated flow channels in the soils when flow velocity exceeds a critical value in order to have a better understanding about the behavior of very soft soils during consolidation. The formation of flow channels could invalidate the application of consolidation theory to these cases and potentially could have a beneficial effect by increasing the hydraulic conductivity and accelerating the consolidation process.